Phase I IUCRC Oregon State University: Center on Pervasive Personalized Intelligence (PPI)

The Internet of Things (IoT) refers to the ecosystem of computing devices (e.g. cellphones, household appliances, vehicles, etc.) connected to each other via the internet. The goal of the Center is to enable the next generation of IoT systems to be more proactive and personalized without compromising security and privacy, thereby improving decision making, increasing efficiency and enabling new types of computing applications. This Pervasive Personalized Intelligence (PPI) will be brought about by collaborative research efforts between industry and Oregon State University (OSU), which will advance the areas of Artificial Intelligence, Computer Security and Privacy and Visualization.

Researchers at OSU will investigate foundational research under three thrusts. First, under the AI thrust, investigators will develop new AI algorithms in anomaly detection, transfer learning, time series analysis and explainable AI. Second, for the security and privacy thrust, investigators will explore methods for private computation, in which several parties use private data in a computation, and learn only the result of the computation without learning any other private information. Finally, under the visualization thrust, investigators will explore methods to help data stakeholders, research scientists, and policymakers to understand their data and/or make sense of decisions made by AI systems.

Advances in IoT will impact many facets of everyday life. The PPI Center explores research thrusts in Artificial Intelligence, Visualization and Computer Security and Privacy that are broadly applicable beyond IoT systems to a variety of other scientific domains such as environmental science, agriculture, biology and robotics. The research outputs will be disseminated through publications, research presentations to industry and academia, open-source code and industrial collaborations. The Center will train graduate students through hands-on experience on projects relevant to industrial collaborators. The educational activities include summer schools for industry engineers and K-12 outreach through partnerships with OSU’s programs.

The PPI Center will maintain a publicly-accessible project repository that will store open source code, publicly available datasets, papers and other research outputs that can be disseminated to the general public. This repository will be maintained for the lifetime of the center and the URL will be http://ppicenter.org.